Efficient Testing Paradigms and Diagnosable Design Methodologies for Analog Integrated Circuits and Systems

This research is on test paradigms for high-frequency, linear and nonlinear mixed signal circuits and systems. Issues in BIST (Built-In Self-Test) and design for testability are being addressed. Fault models for hard faults (open or short circuits) and for soft faults (deviations from nominal component values) are being developed. For BIST design, a high speed, low power, current mode copier is employed as the sample/hold circuit to achieve 10 ns/sample at 0.1% accuracy under 3.3V power supply. Both CMOS and BiCMOS technology are being used. Design for testability work focuses on properly selecting component values and topological structure to increase testability and diagnosability. The problem of determining component values is formulated as an optimization problem which includes testability strategy as a parameter. The new methods are being tested on realistic circuits.